Relative Price Movements and Capital Mobility in International Macroeconomies

9308615 Backus Two of the outstanding issues in international macroeconomics concern the variability of relative prices (why are real exchange rats so volatile?) and the absence of international capital mobility (why is there so little international borrowing and lending?). Neither of these features of international economies is predicted by standard dynamic general equilibrium theory. The purpose of this project is to look more closely at the evidence and assess four extensions of the theory designed to explain these two features of the world economy, with particular emphasis on price variability. The extensions of the theory are especially valuable because they improve measures of the welfare consequences of government policies that influence relative price flexibility and international capital mobility. The extensions incorporate, respectively, incomplete markets, limited enforceability of foreign loans, fixed costs of changing export capacity, and wage/price inertia into a general equilibrium setting, where prices and quantities are both explained. The theory is developed in a form that makes comparison with data relatively straightforward. Each theoretical extension will be evaluated with regard to its ability to mimic observed fluctuations in relative prices and international capital flows. ***